SP: Collaborative Research: Rapid Evolution of Transport Protocols

The Internet is a tremendous engineering success. It has sustained a heady rate of growth and change
over at least the past decade and has found broad application that has made it part of the fabric of society.
Driven by changes in the underlying technology and by new applications, it is certain to continue evolving.
Such evolution is supported by a large and diverse body of research that often anticipates future needs.
In the case of transport protocols, our focus, the future holds protocols for a new generation of streaming
media, stable congestion control at very high rates, mobile, multi-homed and aggregate connections, and
information dissemination via peer-to-peer networks and application-level multicast-at least.

Unfortunately, it is very difficult to move from the results of such research to use in the global Internet,
no matter how promising the research. Today, operating system vendors, not researchers nor even product
developers, must typically provide new transport protocols. To be suitable for deployment, these protocols
must be able to successfully interoperate with the installed base of transports during the long period of
gradual adoption. This process is costly and time-consuming. More insidiously, it has an incentive structure
that discourages experimentation and early adopters. The bottom line is that current upgrade mechanisms
are arguably the limiting factor in realizing the benefits of many ongoing research efforts.

The researcherss propose to investigate a new approach to the evolution of transport protocols that will allow experimenters to quickly and easily upgrade transport protocols. It will do so in a realistic Internet setting and with less concern for the installed base. This would allow, for example, the GRID community to deploy
a TCP carefully tuned for high-rate transfers, or researchers studying the Congestion Manager to readily
experiment with it at a large scale and across the wide-area. The system envisioned will fundamentally
differ from today's independent end-system upgrades by allowing one end of a connection to upgrade the
other by using untrusted mobile code. This "dual-end" upgrade model will encourage the deployment of
useful protocols by tipping the balance of the incentive structure in favor of early adopters. It will encourage
experimentation by allowing researchers and developers to upgrade transport protocols directly, rather than
indirectly via operating system vendors. The proposers believe it has the potential to multiply the benefits of research that is currently being undertaken by others.

Intellectual Merit. The key challenge is to determine how it is possible to realize the straightforward
vision of rapid evolution via dual-end upgrades without negating its practical benefits. This is a difficult
task, as the use of untrusted mobile code has been previously explored in the much more general domain of
active networks, with limited success. However, they argue in the body of this proposal that now is the time
for a concerted research effort on transport protocol deployment. Recent advances in the understanding of
network protocols (specifically TCP friendliness and robust congestion signaling with ECN nonces), understanding of the sharing and termination issues in safe-language runtimes, and maturing language technology (in the form of Cyclone, a safe yet C-like language)-plus a well-defined problem domain that simplifies protection issues-have made the effective use of untrusted mobile code a real, though challenging, possi-bility. The PIs have expertise in all of these areas, along with an established research collaboration.

Broader Impacts. The proposed research has the potential to achieve a broad impact by a true multiplier
effect: it directly helps to realize the benefits of research that is undertaken by others, encouraging
rather than discouraging upgrades by virtue of its incentive structure. The ease of experimenting with new
transport protocols in a realistic setting will lower the research barrier, helping a larger pool of researchers (and particularly minority institutions) to compete more on the basis of their ideas and less on the level of deployment resources they are able to muster. The researchers expect there to be a strong educational component of this work, since students as well as researchers can safely experiment without concern for adversely impacting the network, even on generic, shared machines. Real deployment, perhaps solving real problems, can occur among fellow students, and is ultimately limited only by a protocol's value and the students' ability to publicize it. Thus will students, and researchers, be empowered and motivated.